Delta Rural Systemic Initiative Project

9700041 Alexander ABSTRACT The Delta Rural Systemic Initiative The Delta Rural Systemic Initiative (DRSI) is an award to the University of Mississippi on behalf of a consortium of state, local, and university educators in Arkansas, Louisiana, and Mississippi. The project targets rural, impoverished school districts in the Lower Mississippi River Delta region of the three states. The DRSI project will: (1) improve the K-14 learning environment in the targeted counties/parishes to address student needs and promote student achievement in science, mathematics, and technology (SMT); (2) increase the capacity of local communities to build and maintain quality science, mathematics, and technology educational opportunities; (3) establish mechanisms that promote the development and implementation of appropriate policies at local and state levels that will sustain SMT education reform; and (4) create a regional infrastructure that will utilize intra- and interstate alliances to develop sustainable regional improvements in science, mathematics and technology education. The DRSI has 3 primary focus areas: Local and regional capacity building and leadership development-The initiative will offer to the district and school personnel leadership institutes and professional development opportunities that are designed to promote standards-based instruction, and adoption of systemic reform principles. Some of these will be given directly by the initiative team or through sub-contracts, and some will be developed by the districts and supported by sub-awards from the initiative. Resource convergence and brokerage-The initiative leadership and field personnel will provide assistance to regional school personnel in realigning and redistributing funding allocations in a manner responsive to systemic reform . . . . prmclples. Technical assistance and on-site follow-up-The initiative, through field personnel, will systematically provide technical a ssistance to district and school personnel in a manner that will improve educational efforts to adopt standards-based practices. DRSI will facilitate educational systemic reform by working directly with district and school personnel--some district-specific opportunities and some offered on a regional basis. Much of the district-specific work will be the responsibility of six Field Coordinators (FCs), who will be assigned to certain participating districts. -